Conference: Finger Lakes Probability Seminar

This award will support the annual Finger Lakes Probability Seminar in the years 2025-2028 at four universities in the Finger Lakes region of NY according to the following schedule:
April 18-19, 2025 at University of Rochester
April 17-18, 2026 at Syracuse University
April 16-17, 2027 at Cornell University
April 21-22, 2028 at SUNY Binghamton

The conference will bring together researchers in probability from the Finger Lakes region. It will facilitate communication, exchange of ideas, and introduction to new research directions. Each meeting will have talks given by 3 invited speakers and several sessions of contributed talks. It will give an opportunity for graduate students and young researchers to enlarge their professional network and present their research.
Information about the conferences will be available on the conference website: https://people.math.rochester.edu/faculty/cmlr/Finger-Lakes/.